MRI: Acquisition of Computer Facilities to Support an Interdisciplinary Multidata Signal and Image Processing Laboratory

EIA-9871159 Nawab, S. Hamid Castanon, David A. Boston University MRI: Acquisition of Computer Facilities to Support an Interdisciplinary Multidata Signal and Imaging Processing Laboratory The requested instrumentation will serve to establish a dedicated interdisciplinary signal and image processing facility, serving a core of eight faculty members and their students in the Electrical and Computer Engineering Department at Boston University. The equipment is intended to develop a unified signal and image processing computing facility in the department. This facility will support student and faculty research projects, enabling new multi-modal signal and image processing projects through access to a variety of I/O devices and enhancing current and pending research projects by making cross-disciplinary work much easier with the existence of a common software environment and fast data storage and computing platforms. The proposed equipment consists of, 1) a computational engine with significant core memory to provide the necessary tools for tracking the challenging computational problems; 2) a dedicated data server; 3) a number of satellite computers of varying computational power and type, and 4) a wide variety of input and output devices chosen to provide state-of-the-art capture, storage, manipulations, and presentation capabilities in major functional areas associated with signal and image processing research and education.